Presidential Young Investigator Award

The normal transport of inorganic ions across the surface membrane of any cell is essential for its physiological function. This research is directed toward understanding how eukaryotic cell membranes tranport ions, and in particular, how yeast cells tranport potassium. Two potassium transport systems have been identified thus far, one having a high affinitiy and one a low affinity. The gene for the high affinity transporter has been cloned, and a quantitative assay for transport through this system has been developed. Deletion of the gene for the high affinity transporter permits the study of the low affinity transporter and of potassium extrusion pathways. The next goals of this research are to study the surface membrane potassium transporter proteins in more detail and to identify and characterize the systems mediating potassium transport in intracellular organelles (mitochondria and vacuoles). This research will provide important new information on the molecular mechanisms of ion transport in eukaryotic cells, and is the basis of this Presidential Young Investigator Award to Dr. Richard F. Gaber.